AIHEC Attendance at AISES Conference, Washington, D.C., November 1992

This project supports eighteen faculty members from Tribal Colleges which are members of the American Indian Higher Education Consortium (AIHEC) to attend the 1992 American Indian Science and Engineering Society (AISES) Conference in Washington, DC, November 5-8, 1992. This is an extremely worthwhile activity and serves to supplement the program CISE supports to bring faculty, from the more general category of minority institutions, to computer related conferences. The AISES conferences addresses a much broader range of issues relating to science and engineering education at these institutions which serve a primarily Native American population. It is critical that faculty at minority institutions attend national conferences of this type in order to become better integrated into the research and education communities. This project represents a strong effort in that direction.